Fashioning Regions, Re-Fashioning Nature: Resource-Based Industrialization and the Production of Rural-Urban Systems in the 19th Century United States

U. of Colorado, Denver The research focuses upon 19th century industrialization and regional development in the United States. The primary objective is to determine the character and extent of rural-urban linkages and to document the mutual construction of city and countryside in two regional settings: eastern Iowa and northern Colorado. The research aims to trace the articulation of extraction and manufacturing within regional economies, highlight the centrality of resource-based industrialization to American economic growth and connect rural social and environmental change directly to the process of urban expansion. A comparative regional approach will be used to examine the development of rural -urban linkages. In addition a production based approach will be used to examine the formation and restructuring of commodity-specific chains of production, distribution and consumption that weave rural and urban space into a single territory. Data will be gathered from archival sources in both locales. The project will provide new knowledge and add to our theoretical understanding of the process of regional development and its urban and rural bases.